Alaska Rural Systemic Initiative, Phase II

The underlying purpose of the AK RSI has been to implement a set of initiatives to document
the indigenous knowledge systems of Alaska Native people and develop pedagogical practices
and curricula that appropriately incorporate indigenous knowledge and ways of knowing into
the formal education system. The systemic reform focus of the AKRSI reform strategy is the
fostering of connectivity and complementarity between two interdependent but historically
disconnected, alienated complex systems - the indigenous knowledge systems rooted in the
Native cultures that inhabit rural Alaska, and the formal education systems imported to serve
the educational needs of rural Native communities. Within each of these evolving systems is
a rich body of complementary scientific and mathematical knowledge that can serve to
strengthen the educational experiences and improve the academic performance of students
throughout rural Alaska. The following initiatives constitute AKRSI educational reform strategy:

Culturally Aligned Curriculum/Cultural Standards
Village Science Applications and Careers/ANSES Chapters, Camps and Fairs
Indigenous Science Knowledge Base/Multimedia Cultural Atlas Development
Native Ways of Knowing/Parent Involvement
Elders and Cultural Camps/Academy of Elders

The initiatives above will be implemented on a region-by-region basis, building on Phase I
to integrate the reform process into the everyday workings of the schools and districts
to a sustainable level by the end of Phase Il. Also an array of statewide intiative will be
implemented to support the activities at the local and regional levels.
Following is a summary of the statewide initiatives relative to the implementation of the
Regional initiatives during Phase II.

Math/Science Performance Standards and Assessments
Alaska Standards for Culturally Responsive Schools
Cultural Frameworks for Curriculum
Native Educator Associations
Alaska Native Knowledge Network
Consortium for Alaska Native Higher Education

The experience and academic achievement successes gained during Phase I, are
the basic strategy for Phase II, but will be continued with greater intensity and delineation.
of emphases. The locus of activity will be in the same 20 rural school districts as partners
in those schools with the primary differences during Phase II being the concentration of
effort and increased emphases on sustainability of the initiatives.